Dissertation Research: Diet and Health in a Classic Mimbres Pueblo

9312472 Bennett Under the direction of Dr. Kenneth Bennett, Ms. Diane Holliday will collect data for her doctoral dissertation. She will analyze human skeletal materials excavated from the Classic Mimbres site of NAN Ranch, which is located in southwestern New Mexico. The site was occupied between ca. 1000 - 1150 AD. Ms. Holliday will use a series of techniques to reconstruct the health status (when they were alive) and diet of individuals who lived in two different areas of the site to determine whether significant differences exist and whether they can be explained on the basis of social status. To do this she will conduct both osteological and chemical analyses. She will examine the bones to determine subadult growth rates, adult stature and the incidence of skeletal abnormalities which indicate either malnutrition or disease. Both trace element and carbon isotope analyses will then be conducted and these allow estimation of relative amounts of meat and corn in the diet. Prior to the arrival of Columbus in the New World, Native American societies in the U.S. Southwest reached a chiefly level of organization characterized by aggregates of people in towns composed of large pueblos, some including several hundred rooms. Anthropologists wish to understand both the processes which led to this aggregation and the mechanisms which permitted these groups to persist for hundreds of years. In many parts of the world, this process was accompanied by the appearance of status differentiation and the emergence of a stratified society with a chiefly form of organization. However the Mimbres culture is interesting because, from extant archaeological evidence at least, such status differentiation is not apparent. Through use of skeletal analysis and the application of chemical techniques Ms. Holliday will examine this question. This research is important for several reasons. It will increase our understanding of how complex societies emerge. It will provide new data on t he prehistory and achievements of Native Americans in the U.S. Southwest. It will also contribute to the training of a promising young scientist. ***